Instabilities During Step-Flow Epitaxy: A Unified Approach

Jabbour
DMS-1009562

The main thrust of this project is the study of
instabilities that occur during step-flow epitaxial growth. It
comprises three parts. The first part concerns the discrepancy
between the stability predictions of the standard
Burton-Cabrera-Frank model and recent experiments that have
established the coexistence of step meandering and bunching.
This discrepancy is traced back to the incomplete information
that the classical Gibbs-Thomson relation delivers about the step
chemical potential. An alternative theory, informed by
thermodynamics, yields a framework for resolving the
aforementioned discrepancy. The second part focuses on the roles
of electromigration and elasticity in the onset and evolution of
step instabilities. In both cases, appropriate generalizations
of the Gibbs-Thomson relation are embedded in thermodynamically
compatible formulations of the resulting free boundary problems.
As regards electromigration, the goal is to determine if the
interplay between the drift velocity and the jump in the adatom
grand canonical potential along steps can explain the observed
reversals in the current direction needed to trigger bunching
upon transition from low- to medium- to high-temperature regimes.
With respect to elasticity, the effect of stress on the stability
of an isolated step against meandering and that of a periodic
train of steps against bunching is studied. In the third part,
the growth of nanowires by molecular beam epitaxy and
electrodeposition is considered. Because of its small radius,
which implies few steps, the growth of a nanowire is an ideal
setting to examine boundary effects on step instabilities and
compare the standard Burton-Cabrera-Frank formulation to its
proposed thermodynamically consistent alternative. The role of
the jump in the adatom grand canonical potential during
electrodeposition is probed, especially whether bunching provides
a dissipative mechanism for the minimization of the nanowire
total free energy.

This project develops a unified approach to a central
problem at the junction of materials science, solid-state
physics, and applied mathematics, namely, the investigation of
the onset and evolution of instabilities during step-flow
epitaxy. Through a blend of modeling, analysis, and computation,
the investigator and his collaborators develop novel mathematical
theories that resolve discrepancies between experimental
observations and existing models. Instabilities play a critical
role in the self-assembly of various nanostructures, which in
turn strongly affect the macroscopic performance of devices that
span a wide range of technologies, from optoelectronics and
data-storage devices to biosensors and energy-conversion systems.
A fundamental understanding of the physical mechanisms underlying
these instabilities and their interplay can therefore contribute
significantly to the design and manufacture of increasingly
smaller and more reliable devices with tailored properties for
specific applications.